Development and Study of Self-Assembled Microthermometers

CBET-0755704
Sokolov

Remotely accessed microthermometers are of great interest for measuring / studying various thermal transport processes, including biotechnology, microreactors, microfluidics, environmental study, etc. At the present time, various dyes, pigments, microencapsulated dyes, and liquid crystals are used to map the temperature in bulk fluid. All these dyes and particulates have serious limitations: either rather small temperature sensitivity or too narrow working range of temperatures, they can contaminate the medium in which they are being used, and/or the temperature signal can be confused with the signals from a possible change of the medium chemistry.

Here we propose to develop a novel class of colloidal fluorescent silica particles which will be able to "measure" the temperature of the environment, and which will be free from the problems listed above. The temperature will be obtained as a function of the fluorescence of the particles. To make such particles, we propose to use recently discovered self-assembled micron-sized nanoporous silica colloids. Fluorescent molecules will be encapsulated inside the cylindrical nanochannels of those particles. Such particles/detectors can be used to study temperature and transport phenomena in both liquids and the ambient environment.

The study of the optical behavior of fluorescent dyes in effectively one-dimensional confined geometries of nanochannels is also of fundamental interest. Apart from the enhanced temperature sensitivity, our preliminary study shows that encapsulation of some fluorescent dyes results in a rather high fluorescence, which is, for example, 170-300 times higher than fluorescence of similar-sized polymeric particles with embedded quantum dots reported recently. This makes these particles the brightest fluorescent beads ever synthesized. Thus, the proposed microthermometers will be easily traceable.

Intellectual Merit: findings of this study will result in the development and understanding of novel ultra-bright fluorescent particles that will act as thermometers of micron size. Each such thermometer will be remotely accessible by measuring the fluorescent light radiated by these particles. Optical behavior of fluorescent dyes in a confined well-defined geometry of nanochannels will be studied. We will study the nature of the enhancement in temperature sensitivity after encapsulating the dyes. This will allow development of the micro-thermometers optimized for sensitivity, repeatability, and stability.

Broader impact: Microthermometers will be used for both research and industrial applications which require studying temperature distributions and flows in a bulk of transparent media. The proposed research is expected to have a high impact on society. Great visual appearance of the particles and fascinating internal structure will help to make winning public presentations and attractive publications. The results of this research will be disseminated over the Internet, professional publications, popular literature, and will be presented at conferences, including student conferences. This will help to bring more American students to science by showing them the real interest and excitement that scientific research can provide.

Transformative nature: The proposed microthermometers are expected to be used in a broad variety of applications: as "smart dust" for mapping temperature fields to optimize the heat flows to minimize energy losses in buildings, offices, factories, optimizing energy-consuming manufacturing processes, etc; as temperature tags in solids to bring fundamental understanding of the interaction of energetic beams, such as lasers, for the solid surfaces. Furthermore, being silica on the outside, these particles will be biologically benign, so they can be used in biomedical applications that require visualization of the temperature distributions in organs and materials. Finally, the microthermometers will be used to study heat transfer at the scales down to the submicron range, which is of continuing importance to energy conversion, biotechnology, microelectronics, and biochemical detection.